Transport and Superconducting Tunneling Studies of Thin Films of Heavy Fermion Materials

It is proposed to fabricate thin films of heavy-fermion materials and study their transport properties when subjected to strong magnetic fields; compounds of cerium and of uranium will be examined. Heavy-fermion materials show extraordinary electronic properties, some exhibit superconductivity. Measurements on thin films should give valuable insights into the behavior of these highly unusual materials.